Studies Involving Molecules and Intermediates of TheoreticalInterest

The focus of this research is to synthesize structurally intriguing molecules. Particular emphasis will be placed on constructing systems wherein cyclobutane sigma orbitals can relay pi-electronic information from two sectors rigidly arranged in orthogonal fashion. Other targets include biscyclooctatetraenophanes, beltenes and a semibullvalene having a neutral homoaromatic ground state. Studies on the limits of neighboring group participation on classical first order substitution reactions will also be carried out as will research on the catalytic role of Group 4 transition metal complexes in asymmetric synthesis. %%% With this accomplishment based renewal award, the Synthetic Organic Program is supporting the research of Dr. Leo A. Paquette of the Department of Chemistry at Ohio State University. Dr. Paquette will focus his work on the synthesis of structurally intriguing polycyclic molecules whose electronic and reactivity characteristics test the limits of existing theoretical models.